Research Experiences for Undergraduates in Chemistry at the University of Alaska at Fairbanks

Professor Lawrence F. Duffy and other members of the Chemistry Department at the University of Alaska at Fairbanks are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry and Biochemistry. For the period 1991-93, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range from physical chemistry to biological chemistry, and include projects in Raman spectroscopy, atmospheric, environmental and analytical chemistry, chemical ecology, petroleum and geochemistry, bio-organic chemistry and marine chemistry, as well as chemical anthropology and molecular evolution. Many projects are related to local Alaskan interests. The program includes a seminar series and a poster symposium at the end of the summer.